Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Statistics at North Carolina State University will
purchase a high-performance clustered computing facility which will be
dedicated to the support of research in the mathematical sciences. The
equipment will be used for several research projects, including in
particular:
- Simulation Methods for Data Measured With Error
- Stochastic Models of Gene Regulation
- Spatial Modeling, Visualization and Inference
- Statistical Analysis of Large Data Sets
- Models of Biological Pattern Formation